Twelfth Interdisciplinary Laser Science Conference (ILS-XII); Rochester, New York, October 20-25, 1996

Travel and living expenses are provided for graduate students from various universities to attend the Twelfth Interdisciplinary Laser Science Conference in Rochester, New York, October, 20-25, 1996. The congress will feature a broad range of talks in the application of lasers to problems in atomic and molecular physics as well as to chemistry.